RIA: Large Deformation Analysis of Nonlinear Homogeneous & Heterogeneous Media Using an Adaptive Arbitrary LagrangianEulerian Finite Element Method with Appl. in Indus'l Forming

This Research Initiation Award is made to develop stable, accurate and efficient computational models for large deformations of metals and composites. The finite element method with arbitrary Lagrangian-Eulerian kinematic description will be implemented for industrial forming processes.